Attendance of U.S. Academics to the 4th International Conference for Conveying and Handling of Particulate Solids - Budapest, Hungary

The PI has requested for funding of several participants to the "4th International Conference for Conveying and Particle Handling in Budapest, Hungary". The funds are used to encourage participation of younger faculty and faculty from underrepresented groups.